Upgrading of Seismology Computer Facilities at University of California, Santa Cruz

9418213 Schwartz This award provides one-half the funding required for the acquisition of equipment to upgrade the computing capabilities in the Institute of Tectonics at the University of California-Santa Cruz. The institution is committed to providing the remaining funds needed to acquire the equipment. The equipment upgrade will be used primarily by the earthquake seismology research group of the Institute of Tectonics, currently consisting of three professors, three research scientists, five postdoctoral fellows, and nine graduate students. The research program in seismology at UC-Santa Cruz encompasses both studies in Earth structure and studies of earthquakes and other sources of seismic waves such as underground nuclear explosions. The research of the group includes processing of very large data sets and executing computer codes with large memory requirements. ***